Research Experience for Undergraduates at the University of Utah

This Research Experiences for Undergraduates (REU) Site project is for research activities in all the subfields (organic, physical, analytical, inorganic, and biochemistry) of chemistry. For a three-year period beginning in April 1989, eight (8) undergraduate students will spend ten (10) weeks engaged in research under the supervision of their faculty , graduate student, or postdoctoral fellow advisor. A unique feature in this REU activity is use of a graduate student or postdoctoral fellow as a "peer" mentor to help the student get started in the laboratory.